U.S.-Netherlands Cooperative Research: Fourier Transform Infrared Spectroscopic Study of Visual Transduction Mechanism (Biophysics)

This award supports a 30-month cooperative research project in biophysics between Dr. Kenneth J. Rothschild, Director, Cellular Biophysics Program, Boston University, and Dr. Willem J. de Grip, Department of Biochemistry, University of Nijmegen, The Netherlands. The scientists and members of their research groups are collaborating in a study of the detailed molecular mechanism by which rhodopsin functions as a key component in the visual transduction process. Aspects to be addressed include (1) how isomerization of retinal leads to transient signal expression in rhodopsin, (2) the detailed configuration of the retinal chromophore at different steps in the bleaching sequence, (3) the role of photoreceptor membrane phospholipids in the visual process, and (4) the role of rhodopsin alpha-helices in transmitting the transductory signal from the chromophore to the transient signal sites. Fourier transform infrared (FTIR) difference spectroscopy will be used to study the light-induced conformational changes occurring in rhodopsin and photoreceptor membrane. Some of the studies will involve modified rhodopsin samples produced in Dr. De Grip's laboratory. These include samples with isotopically labeled chromophore, proteolytically and chemically modified rhodopsin, and rhodopsin reconstituted into different lipids. The experiments to be carried out here are aimed at understanding better the fundamental processes that take place when light strikes the retina of the eye. A combination of advanced biophysical and biochemical techniques will be applied to detect the subtle structural changes that occur in rhodopsin molecules in the retina in response to absorption of light. These changes ultimately give rise to the neural excitation we interpret as vision, but the exact mechanism is not yet understood. Dr. Rothschild is a leader in applying FTIR spectroscopy to the study of biophysical systems. Dr. De Grip is an expert in the field of rhodopsin biochemistry, and he will prepare many of the samples to be studied in this project. Working together, the two scientists and members of their respective research groups hope to increase significantly our understanding of the photochemistry of vision.